4-D Variational Data Assimilation and Parameter Estimation with the Full Physics NMC Spectral Model

The overall goal of this research is to determine the physically most representative and computationally efficient ways of handling data assimilation in numerical weather forecast models. This award will allow the principal investigator to continue his research into the use of variational methods applied to numerical forecast models. In collaboration with scientists at the National Center for Environmental Prediction (formerly the National Meteorological Center or NMC), he will systematically explore the contribution to the forecast improvement and computational costs of including various physical processes. A second research topic involves the use of parameter estimation using adjoint methods as another means of improving forecasts. In this case, the PI will explore model sensitivity to seasonal and geographical as well as meteorological parameters. The principal investigator's work has contributed and will likely continue to contribute to improvements in operational weather forecasting while advancing fundamental knowledge of numerical techniques. ***